How to Measure Dissolved Organic Matter in Seawater

This effort will seek a resolution to the controversy on DOM measurements that have arisen due to the development of a high temperature combustion method. Apparent differences may be due to variable blank interferences and varying approaches to correction. It appears that rigorous protocol, not only for sample collection and preparation, but also for standardization and blank correction, could bring disparate DOC values closer together. It remains to be seen whether the older wet chemical and UV methods really miss much of the "new" DOC. The HTC methods for DON are obviously less well developed, but there is hope that with attention to monitoring of nitrogen budgets in method development a more complete final product can be obtained that does give all of the DON. There is presently no clear indication that conventional methods for DON give values much lower than HTC ones, but there are serious problems still to be resolved with the HTC methods. The proposed next step is an effort that will take approximately two years and is based on recommendations arising from a community wide workshop convened to address the issue.